Oceanographic Instrumentation 2005

0503046
Taylor
This award to University of Hawaii at Manoa provides support for the acquisition of shared-use scientific research instrumentation to be used on R/V Kilo Moana, a research vessel operated by University of Hawaii as part of the University-National Oceanographic Laboratory System fleet. Specific instrumentation supported under this award includes computers and related components for the shipboard Scientific Instrumentation System, pingers, water sampling bottles and other sensors to be used with the ship's CTD system, wax corers for sampling ocean basalt, and an upgrade to the vessel's navigation/motion sensing system. These acquisitions should provide a substantial advantage to marine scientists in their research during 2005 and future years.
***